Application of Accelerators in Research and Industry, International Conference, Denton, TX Nov 5-8, 1990, Group Travel Award in U.S. and Indian Currency

Description: This project provides support for participation by eight scientists from India and one from Egypt in the 11th Conference on the Application of Accelerators in Research and Industry to be held at the University of North Texas, Denton, TX between November 5 and 8, 1990. The purpose of the conference is to review current research and the wealth of industrial applications that are in progress throughout the world with accelerators. The conference is composed of two symposia which run in parallel, the Research Symposium, and the Industrial Applications of Accelerators. Some of the sessions are of common interest and will be open for both groups. Areas where papers have been accepted include: Atomic physics and related phenomena, Trace & Surface Analysis with Ion Beams, Electron Beam Processing, Nuclear Physics, CTR & Related Phenomena, Neutron Activation Analysis & Bulk Analysis with Accelerators, Radiological Safety Aspects of Accelerators, Ion Implantation with particular emphasis on Semiconductors & Metallurgical Applications, Geosciences and Related Phenomena, Charged Particle Microprobes, Super SIMS, Carbon Dating, Computer Tomography, Synchrotron Light Source experiments, Insitu Beams, Radiation Interaction with Ion Beams, Accelerator and component Design & Automation, Targetry, Detection & electronics, Medical, Biological & Chemical Applications, Material Analysis with Ion Beams, Channeling, Stopping Power & Radiation Effects. The conference is a topical conference of the American Physical Society and the abstracts will be published in the September 1990 issue of the Bulletin. Over 150 scientists from India, and 18 from Egypt have expressed interest in attending. A selection committee from academia, industry and government will select those to receive support. Scope: Past participation of foreign scientists in this series of conferences has proved to be quite beneficial to all concerned. This is the only conference in the world that addresses itself to research and industrial applications of accelerators. Participants get to hear "state-of-the-art" papers, and to discuss common problems with world experts. Most participating countries have obtained accelerators from U.S. manufacturers, and the interaction of user scientists with scientists in the accelerator manufacturing industry is important.